WORKSHOP: The 4th International Workshop on Future Information Processing Technologies in Gubbio, Italy, September 3-6, 2001.

The purpose of this workshop is to gather for the fourth time, a diverse group of leading researchers in solid state technology, devices, circuits, and system architectures to:

Assess the change in the knowledge base since 1999

Interact in an open discussion and free exchange of ideas across the broad spectrum of communication/information processing technology

Identify areas on the research frontiers that extend communication/information processing progress into
the 21 st Century and beyond shrink limitation

Establish a communication link between researchers from around the world from different disciplines
and backgrounds for a fruitful exchange of experiences and ideas

As the cost and performance factors of microelectronic devices improve through advances in technology,
novel and/or improved information/communication systems are enabled. Conversely, new concepts for
information/communications applications often create a demand for more advanced microelectronics
technologies that offer unique capabilities. As an example, the need for mobility has driven the creation of
high performance, low power, microelectronic devices used in portable electronic assistants with
communication capabilities

The objective of the 4th IWFIPT is to examine the push and pull between microelectronics technology and
emerging application areas to obtain a sense of future technology trends and capabilities. Leading
contributors will describe their views on hardware performance and functionalities needed in the
information society of the future. These projections will be juxtaposed with anticipated trends in
microelectronics and with potential ioradical technologiesli arising from advances in carbon-based materials,
quantum physics, molecular nanotechnology and other areas. A synthesis of views is planned to identify
trend feeding, trend fighting and trend setting microelectronic technologies that are likely to emerge over
the next few decades.